Applications of operator K-theory in topology, harmonic analysis, index theory

Abstract
Kasparov

The main objective of this project are applications of operator
K-theory to a number of well known problems in topology, harmonic
analysis and index theory. These problems are the Novikov conjecture on
higher signatures of smooth manifolds, the Baum-Connes conjecture in
K-theory of group C*-algebras, the problem of multiplicities of
automorphic forms, index theory for transversally elliptic operators.
Operator K-theory has its origins in the index theory of elliptic
operators, and it is most natural to study elliptic operators,
including transversally elliptic operators, using operator K-theory.
Also operator K-theory is a very suitable tool in applications related
to geometric group actions, which makes it exceptionally useful for
problems like the Novikov and the Baum-Connes conjectures.
Multiplicities of automorphic forms is another topic where operator
K-theory gives new approaches to old problems.

The development of quantum mechanics in the 20th century has led to the
creation of the theory of operators in Hilbert space and later to the
creation of the theory of C*-algebras. The theory of C*-algebras is
closely related with the contemporary field theory in physics, as well
as with geometry, topology, Lie group representation theory, etc.
Operator K-theory came to the C*-algebra theory from topology and grew
out into a highly powerful tool. Nowadays, operator K-theory is part of
the non-commutative geometry which is a synthesis of analysis and
geometry with wide applications in many areas of mathematics and
theoretical physics. The emphasis of the present project is on the
applications of operator K-theory to several well known problems in
analysis and topology.